Nonlinear Wave Equation Asymptotics and Functions of Bounded Higher Variation

This proposal focuses on two distinct but related lines of research:
singular limits of nonlinear wave equations, and the development of
theory and applications of a function space, BnV.
The former problems entail describing the asymptotic behavior of certain
families of nonlinear wave equations containing a small parameter.
These are mostly well-known equations from mathematical physics.
Specific problems include a number of issues related to vortex dynamics
in solutions of the Gross-Pitaevsky equation, for example dynamics of
vortex filaments in three or more dimensions. The function space BnV turns
out to provide a natural setting for this and related problems. BnV
consists of functions that, in a precise sense, have bounded
n-dimensional variation. The principal investigator will investigate
properties of BnV functions with an eye towards applications to problems
in partial differential equations and the calculus of variations.

We propose to study some questions that include the motion of vortex
filaments in certain kinds of superfluids, and related
questions in pure mathematical analysis.
The most familiar example of a vortex filament is a smoke ring.
Such rings start out small, and as they move, their diameters tend
to expand. Simultaneously, they rotate more slowly as their vorticity
decreases. If one could blow a smoke ring in (bosonic) liquid helium,
it would exhibit quite different behavior. In liquid helium,
the vorticity can only assume certain values. This in effect should
prevent the vorticity along a smoke ring from decreasing, which in
turn should prevent the ring from exanding. Thus a vortex filament in
liquid helium is expected to propagate without its length increasing and
without the rate of rotation changing. Some of the proposed work
involves developing an understanding of this filament motion,
starting from basic equations that describe bosonic superfluids.
This is difficult, in part because the vortex filaments do not
appear in the equations in any explicit way. Other aspects
of the project involve studying a class of functions that can
be used to describe these vortex filaments and other related
phenomena.